Secondary Grades Science/Technology/Society Project

Wisconsin Public Television Network (WPTN) will develop the Science/Technology/ Society (S/T/S) project which will emphasize the presentation of scientific concepts in a context of real-world problems that are social/technical in nature, in order to teach the mutual dependence of science and society. The pilot phase of the project was partially funded by NSF. This proposal will work towards the completion of the Secondary Grades Science S/T/S Project whose design is to enable teachers to incorporate essential instruction about the interrelatedness between science/technology/society in secondary grades curricula. The project includes production and evaluation of classroom video and computer materials for students and of video programs for in-service teacher training accompanied by printed materials. The video programs will use the facilities of WHA-TV in Madison, Wisconsin. The project will draw on the skills of specialists in the design and creation of instructional media, subject-matter experts, and other educators. The project director, Nancy Bauer, will coordinate the efforts of these individuals, the agencies, and organizations they represent. Ms. Bauer is well qualified to serve in this capacity. WPTN's project strongly addresses the goals and scope of the Instructional Materials Development Program in establishing basic science literacy for the general student through an alternative method delivering instructions.